Novel Synthesis of New Natural Products via Genetic Engineering

Polyketides are a large family of natural products found in bacteria, fungi, and plants. Many of them are used as antibiotics, anticancer agents, immunosuppressants, and veterinary products. They are also important as natural food and flavoring agents, or as fungal toxins. Biosynthesis of the carbon backbones of all polyketides occurs via a highly programmed polymerization process, which incorporates critical variations on a common theme of enzyme catalyzed reactions. In each case, the highly selective sequence of reactions is catalyzed by a complex enzyme known as the polyketide synthase. The aim of this project is to investigate the relationships that exist between the structure and the function of polyketide synthases.